Time-Resolved Resonance Raman Spectroscopy of Metalloporphyrins in Excited Electronic States

Julio C. de Paula of Haverford College is supported by the Experimental Physical Chemistry Program to investigate the nature of excited states of metalloporphyrins using time-resolved resonance Raman spectroscopy. The focus of his studies will be (a) to investigate equilibrium dynamics between conformers of tetraphenylporphyrins in triplet excited states, (b) to distinguish between charge-transfer and metal-centered excited states by varying the substituents on ruthenium and nickel ion complexes, and (c) to assign the time-resolved resonance Raman spectra of the cupric tetraphenylporphyrins. Metalloporphyrins have a rich photochemistry that may be applied to artificial photosynthesis, molecular electronics, and photodynamic cancer therapy. For example, free-base zinc and cupric porphyrins are known to sensitize tumor necrosis in vitro. Further, polymers of ruthenium porphyrins are photoconductive and can act as molecular wires. Non-planar metalloporphyrins are emerging as important compounds for a number of these applications, because distortions of the porphyrin ring modulate electrochemical and photochemical properties. These studies of the excited electronic states of metalloporphyrins will lead to a better understanding of their photochemical activity.